Quantification of Urban Climate Perturbations Using Infrared Images of Surface Temperature

This Research Planning Grant will be used to develop an algorithm to adapt broad-coverage AVHRR (Advance Very High Resolution Radiometer) satellite data to examine urban microclimatology, by connecting results from the more easily correctable but less available ATSR (Along Track Scanning Radiometer) data from the European Remote Sensing Satellite. The correction will make use of the ATSR's dual-track viewing angle, which allows a correction of temperature measurements by considering the absorption of infrared radiation by atmospheric water vapor, even with the emissivity variations of land sites. By linking the more frequently captured AVHRR data to the ATSR data, the PI will be able to determine the proper algorithm needed to convert AVHRR data to surface temperatures. This would allow the PI to propose a more accurate and wide-ranging study of the physical processes that yield the urban heat-island effect. The proposed correction will be difficult to achieve. If the PI can do it, this should allow the widely available AVHRR data to be used in a greater range of research applications. The future work proposed by the investigator is on energy exchange in the atmosphere directly above urban areas. This is itself important to the understanding of human-systems' influence on the physical environment as a direct measurement and because it affects our interpretation of more macro-scale measurements of temperature fluctuation.